A New Teaching Approach in Computer Engineering

This project provides for changes and enhancements throughout the digital and computer engineering series of courses. The changes range from additions of programmable logic design experiments at the introductory level to major changes in the area of microprocessor design. The changes include a focus on high level languages and carefully structured top down design, and use of a detailed graphical simulation of the operation of a microprocessor. A new topic in real time programming is also being included. Equipment being acquired includes a number of Macintosh computers, some field programmable gate array development systems, and appropriate peripheral equipment.